Project "YES"

The University of California @ Los Angeles (UCLA) will initiate a four-week, residential Young Scholars project in the Life Sciences which will offer science enrichment activities for 25 physically disabled precollege students entering grades 9,10. This summer program will emphasize research participation in biology, microbiology, physiology and marine science. Participants will research and debate ethical issues. Nonacademic scientists, executives and career planners will help inform the students about colleges and careers and will aid them in setting challenging and realistic goals. More than half of all senior academic and professional staff will be individuals with disabilities.